PECASE: Computational Social Choice Theory: Strategic Agents and Iterative Mechanisms

Proposal Title: PECASE: Computational social choice theory: strategic agents and iterative mechanisms
Institution: Brown University

This proposal aims to advance the state of the art of automated strategic reasoning through research and teaching at the intersection of computer science and economics. In research, the development of a computational theory of social choice is proposed, emphasizing the interplay of artificially intelligent agent strategies and computational mechanisms that implement collective decisions. Such a theory will facilitate the translation of collective decision-making by human societies into digital form. In education, the design of courses and degree programs across computer science and economics is proposed, as is encouraging women to participate in such programs and to explore careers that build on the resulting cross-disciplinary skill sets.

This project was originally funded as a CAREER award, and was converted to a Presidential Early Career Award for Engineers and Scientists (PECASE) award in May 2004.